Acquisition of A SQUID Magnetometer

Funds are requested for the acquisition of a SQUID magnetometer to conduct a variety of research projects in superlattices, multilayers, granular solids, metastable alloys, low dimensional quantum magnets, and other systems with low-dimensional magnetic and superconducting entities, funded by the NSF. These samples will be fabricated by multisource advanced sputter deposition, molecular beam epitaxy and single crystal growth. These systems are designed to reveal finite-size effects and dimensional crossover in magnetic and superconducting systems with various correlation lengths. The realization and the origin of magnetic surface anisotropy and perpendicular magnetization will be investigated. Surface and interfacial magnetism of a variety of heterostructures and superlattices grown by MBE will be studied. In superconductor/magnetic multilayers, experiments are proposed to investigate the relationship between the effects on superconductivity and the magnetic ordering and conductivity of the magnetic layers. A number of metastable solid systems will be studied in order to reveal new properties in structures unattainable by conventional methods. Low dimensional antiferromagnets provide unique opportunities to explore quantum many-body effects. Various issues of the giant magneto-transport properties in granular magnetic systems will be explored. These are problems of fundamental interest, many of them having important technological implications. In all these studies, a high sensitivity SQUID magnetometer with low- field and variable frequency capabilities is imperative. Funds are requested for the acquisition of a superconducting quantum interference device (SQUID) magnetometer, the most sensitive type of magnetometers, to conduct a variety of research projects in superlattices, multilayers, granular solids, metastable alloys, low dimensional quantum magnets, and other systems with low-dimensional magnetic and superconducting entities, funded by the NSF. These a re problems of fundamental interest, many of them having important technological applications, such as magnetic recording media, field-sensing elements in magnetic recording heads, and superconducting devices.